U.S.-Western Europe Workshop: LNR Signaling Pathway and Its Biological Role, Madrid, Spain, May 1998

This award supports travel of U.S. participants to a U.S.-France workshop on signaling by Notch-related receptors and their biological role, to take place in Strasbourg, France, May 1997. The co-organizers are Judith Kimble of the University of Wisconsin and Pat Simpson of the Laboratoire de Genetique Moleculaire des Eucaryotes, the French National Center for Scientific Research, Strasbourg, France. The objective of the workshop is to stimulate ideas and collaborations for future research. They will discuss the biochemical mechanism of signal transduction by LNG receptors and the cellular and developmental roles of this pathway. Notch-related receptors regulate many cell interactions that control cell fate during the development of multicellular organisms. The workshop brings together researchers working on these receptors in a broad spectrum of organisms.